CAREER: Controlling Space Properties of Higher-Order Typed Programs

Higher-order, typed, functional languages provide an abstract view of computation that supports software engineering activities elegantly, and that is amenable to formal verification. Such languages do not, however, support direct control over computational resources as is needed in domains such as operating systems, the Internet, and embedded systems. This project aims at augmenting such languages with programming constructs, semantic models, compiling and analysis tools for controlling computational resources, particularly space usage. Despite its focus on functional languages, the research addresses a problem common to other modern programming languages like Java that include automatic space management. All such languages suffer from unpredictable space behavior, which causes programmers to waste considerable resources on locating suspected space leaks and optimizing space usage. Furthermore, many of the methods, like the type-based encapsulation of memory threads, are mostly language- independent, and hence universally applicable. Two of the potentially most exciting applications of this language- supported encapsulation are the guaranteeing of safety for mobile code on the Internet and the optimization of parallel programs.